Towards a Monograph of Jakobid, Trimastigid and Metamonad Protists

The jakobid flagellates may be among the most ancestral of living
eukaryotes. Information from the mitochondrial genomes of two jakobid
species, Jakoba libera and Reclinomonas americana, suggests that the
ancestors of jakobids were among the first eukaryotes to acquire
mitochondria. The jakobids, therefore, may represent an informative model
system for the study of the origin and early divergence of eukaryotic cells.
To better understand these organisms, a knowledge of their taxonomic
diversity and relationship to other protists is required. We do not have
this knowledge at present.

In this "proof of concept" study, existing species descriptions of jakobid
flagellates will be assembled and critically analyzed, with examination of
type specimens when these exist. Data on the morphology, ultrastructure,
and life history of jakobid species will be obtained from published papers
and from new investigations on species isolated from nature. These data
will be used to construct data matrices for phylogenetic analysis. Nuclear
small-subunit ribosomal RNA gene sequences will be obtained from cultivated
species for use as species identifiers (e.g., for subsequent molecular
probe design) and, with the morphological data, for phylogenetic analyses.
Preliminary data in these categories will be collected from exemplar taxa of
Trimastigida, Retortamonadida and Diplomonadida, three groups of protists
that closely resemble the jakobids in many ways and may be their closest
relatives.

This work is expected to result in the description of several new jakobid
species and in preliminary assessments of the relationships of jakobids with
each other and with other protists. The resulting monograph, online and in
print form, together with associated publications, should provide a welcome
resource for persons interested in early organismal evolution and microbial
diversity.